Computing Environments for Stastistics

The investigator explores and develops new principles for the design
of statistical software to take advantage of modern computing power.
Particular emphasis is placed on exploring the effective use of
parallel computing, compilation, and code analysis for statistical
languages. Pilot implementations are incorporated in open source
statistical software systems.

Effective statistical methodology made available through statistical
software is critical to the ability of researchers to make maximal use
of experimental and observational data, and for the ability of
instructors to teach good research practices. The design principles
developed by this research lead to software that improves the ability
of researchers, instructors, and other users of statistical
methodology to apply this methodology more effectively in scientific
research and teaching and to take full advantage of modern
high-performance computational resources. These principles also lead
to software frameworks that can be used to more rapidly deliver new
statistical methodology to end users. Applications in a range of
areas serve as testbeds for methods and principles developed in this
research.